Biophotonics: Quantum dots for single molecule imaging in live cells

0620813
Simon
The work in this proposal will optimize fluorophores for following single proteins in cells. This
could significantly enhance the ability to study the roles of proteins in many different cellular
reactions. There are some organic fluorophores that can be monovalently linked to proteins.
Unfortunately, they are not photostable enough to be used for many biological studies. Quantum
dots have significantly greater brightness and photostability. However, they aggregate and are
multivalent in their linkages. This project will optimize the imaging techniques and designs of
quantum dots to reduce aggregation and ensure that their linkages to proteins are monovalent.